Novel Particulate Separations by Electrostatic Coalescence

Phase I of this SBIR research project has demonstrated the technical feasibility of a novel new approach to separation of micron sized particles which is based on differences in their surface characteristics. The new method employs an adaptation of electrostatic coalescence technology now widely used in desalting and dewatering of petroleum feedstocks. In the Phase II effort, ETCI will build a batch operated laboratory test cell for use in studies of the physical, chemical and electrical parameters of the separator. Several different methods of preparation of feed to the separator will be investigated. Studies of the physics of capture will be undertaken using a novel separator built on the stage of a microscope. This work will use thin film deposition technology to simulate sources of intense electric capture forces. Particle capture will be studied using very small monosized spheres made of glass or latex. In the later stages of the Phase II effort, ETCi will build a batch operated laboratory scale prototype separator and demonstrate the new separation process in beneficiation of micronized coal. The principal investigators are well qualified to conduct this research, and a grant is highly recommended for Phase II of the Small Business Innovation Research Program Solicitation.